Structural Properties and Filtration Performance of Melt Brown Electret and Biocide Loaded Air Filters

9415329 Dever This is an award to support preliminary work on the relationships between the measured and theoretical filtration properties of melt blown electret and biocide loaded air filters and to collect data that will provide the basis for a more comprehensive study of this concept. In this project, the investigator plans on incorporating the electrostatic mechanism into the filtration theory to account for removal by the electrets and incorporate diffusion, interception and inertial impaction mechanisms into the filter theory to account for particle bounce at high velocities. The proposal leading to this award was submitted in response to NSF 93-130, Research Planning Grants for Women. Results are expected to provide the basis upon which the concept proposed can be evaluated for its potential use in design of air-filters for removing environmental pollutants from indoor air, a matter of current and growing concern. ***